RUI: Acquisition of Digital Electronics and Computer Control for UV/Vis/NIR Spectrophotometer

The principal investigator has requested funds for the purchase of digital conversion for UV/Vis/NIR Spectrophotometer. The instrumentation will be used in undergraduate teaching and research as well as the principal investigator's research. The principal investigator is studying the mechanism of proton translocation by ATPase, cytochrome,. reductase, cytochrome oxidase, and bacteriorhodopsin, especially the latter. Of particular interest is the role of Asp 115 in bacteriorhodopsin. The upgraded Cary 14 will provide a unique data-processing capability to users in chemistry, physics, and biology.